U.S.-Poland: Ulam's Problem and Related Questions in Algebraic and Geometric Topology

INT-9808925
Kwasik

This U.S.-Poland Cooperative Research award is for a project on "Ulam's Problem and Related Questions in Algebraic and Geometric Topology" between Dr. Slawomir Kwasik of Tulane University and Professor Witold Rosicki of the University of Gdansk. The researchers propose to study various questions which revolve around Ulam's Problem, homotopical equality of h-equal CW complexes and the problem concerning manifold spines. They will also study a problem of a more computational nature related to algebraic K-theory. They will use methods of low-dimensional and high-dimensional topology together with techniques of surgery theory and gauge theory. They also will employ computational techniques related to algebraic number theory.

This research in mathematics fulfills the program objectives of bringing together leading experts in the U.S. and Poland to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.

***